Nucleation Processes in Liquid Helium

w:\awards\awards96\num.doc 9703529 Maris Experimental research will be performed to study nucleation processes in liquid helium. The first project is an investigation of the nucleation of bubbles in helium liquid which is subjected to a negative pressure. We plan to study how this nucleation process is influenced by the presence of electrons and quantized vortices. The goal of the second project is the detection of the nucleation of solid helium at pressures above the normal freezing pressure of the liquid. The third experiment is to look for the nucleation of bubbles at the interface between liquid helium and a solid wall. As part of this last experiment, we will attempt to measure the equation of state of liquid helium at negative pressure. %%% The way in which bubbles form in liquids is important in many technologically important applications. These include ink-jet printers, ship propellers, and liquid pumps. Bubble formation can occur even in clean liquids but is often greatly influenced by impurities or solid particles in the liquid. Studying bubbles in liquid helium is worthwhile because the liquid can be made much purer than any other liquid, and hence it is easier to perform experiments which are unaffected by the influence of impurities. *****